Shipboard Scientific Support Equipment 2011

ABSTRACT

04 August 2011
Proposal Number: 1115033
Institution: University of Washington
PI: W. Wilcock
Co-PI: D. Russell

This proposal requests two Shipboard Scientific Support items for the University of Washington for use aboard the R/V THOMAS G. THOMPSON; namely a replacement winch drum and up-grades to the ship’s internal camera system. These items will either enhance safety and/or provide greatly improved support capabilities to science.

Broader Impact and Intellectual Merit: The PI addressed the Broader Impacts and Intellectual Merit of the proposed equipment specifically for the R/V THOMPSON and BARNES. The research projects supported have been individually peer-reviewed for scientific merit. The University of Washington vessels support federally funded scientific research throughout the world’s oceans to expand human knowledge of the ocean environment. During operations, the vessels routinely expose graduate and undergraduate students to seagoing oceanography through the “Teachers at Sea” program, real-time satellite connectivity from ship to shore, and University open house events. All told, the THOMPSON and BARNES are scheduled to complete over 130 NSF sponsored days in 2011.